Proposal for Supporting the third IEEE/ACM Information Processing in Sensor Networks 2004

This is a proposal to support best paper awards, US student travel, and
publication costs for the third IEEE/ACM Information Processing in Sensor
Networks (IPSN) to be held in Berkeley, CA in April 2004.
The workshop is devoted to recent advances in information processing
techniques and algorithms for sensor networks. This workshop brings
together members of the signal processing, communications, networking and
protocols, data bases, information management and distributed algorithms
communities, working in universities, research centers and industry. The
meeting will feature keynote addresses by leading researchers, as well as
invited and contributed papers.